X-Ray Instrumentation for Improved Semiconductor Manufacturing Productivity

Research on unique soft x-ray wave-length dispersive instrumentation is proposed to fulfill important process monitor needs in the semiconductor industry. ARACOR experience in designing and successfully applying multilayer synthetic microstructures to obtain both wave-length discrimination and focusing of soft x-rays is utilized as a key parat of this work. This proposal details how the novel x-ray optic elements provide large solid-angle collection efficiency and focusing of fluorescent soft x- rays to yield quantitative, non-destructive measurement of elemental materials within measurement times of one to two seconds instead of minutes as for x-ray energy-dispersive instruments. The rapidity of measurement allows application as a process line monitor with the capability of unambiguously determining the elemental concentrations across the wafer surface. A unique and extremely significant application which comes directly from high flux counting is the ability to determine the projected range of ion implanted species. The proposed research in Phase I is primarily theoretical, with major emphasis on determining the parameters characterizing the multilayer synthetic microstructures. The final result to be obtained in Phase I is the design of a characterized prototype instrument.